Geophysics, Solid Mechanics and Geomechanics (Earth Science)

Thousands of small earthquakes rupture the earth's crust every hour, but few of these events ever evolve into the large earthquakes which threaten the human social structure. The question of what stops most small earthquakes from cascading into larger, more dangerous earthquakes remains a scientific enigma whose solution could provide a key to earthquake hazard mitigation in many populated regions of the world. Two possibilities have been presented for determining what stop earthquakes. The first is that earthquakes are stopped by barriers of stronger material. The second is that earthquakes stop simply because they run out of energy and cannot continue propagating. This project will use 3-D finite difference computer modeling of spontaneous rupture propagation to assess the contrasting models of earthquake rupture arrest. Interactive activities at the host institution include: leading seminars on static and dynamic fault interaction and presenting at least one guest lecture per quarter. Dr. Harris's visibility as an active researcher in the field of earthquake seismology will both encourage more women students to apply their expertise to scientific endeavors and encourage the existing majority of male scientists to promote more women into the upper echelons of research and teaching. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.